The Characterization of 13 C-Labeled Organic Solutes in Microalgal Biofertilizers

This research project will focus on the mechanisms that determine the effectiveness of salt stress in increasing the accumulation of nitrogenous compounds in microalgal biofertilizers. A second focus will be the identification and quantification of nitrogenous compounds in the solutes of cyanobacteria and chlorophycophyta microalgal biofertilizers as a result of high-saline environments. During the planning period the PI will develop a proposal to study the nature and function of nitrogenous solutes accumulated by microalgae in response to high-saline environments during the term of the preliminary study. 13C NMR spectroscopy will be employed to quantify and identify the various species of nitrogenous compounds found in the algae as a result of high-saline environments these preliminary data will strengthen the competitive proposal.